Mathematical Sciences: Feedback Design for Nonlinear Systems

The goal of this research is to develop a systematic approach to shaping the response of nonlinear systems to applied forcing mechanisms with the aim of controlling or at least influencing the system behavior. A longer term goal, currently being pursued only at an experimental level, is also to take advantage of exotic nonlinear behavior to achieve a system response which cannot be realized with a linear system. This proposal focuses on the development of a theory of steady- state response and to an unanticipated solution of the "nonlinear regulator problem", for small deviations from an equilibrium. One rather promising new frontier involves a structure of the solution of the regulator problem which seems particularly amenable to a computational implementation of the resulting feedback law. Indeed, the compution requires the off-line solution of a nonlinear partial differential equation which is apparently the analogue, for nonlinear systems, of the Riccati equation of linear control systems.